Travel Grant for Attendance of Junior U. S. Scientists at the XVIII IUIPAC Symposium on Photochemistry

With this award the Organic and Macromolecular Chemistry Program supports a proposal by Dr. Devens J. Gust from Arizona State University to provide travel funds to help junior U.S. scientists to attend the XVIII IUPAC Symposium on Photochemistry, to be held in Dresden, Germany from July 22-28, 2000. The IUPAC Symposium, held biennually, is the major international meeting of photochemists. It provides a forum for the dissemination of the latest scientific developments and concepts in photochemistry, a venue for interaction of photochemists from all over the world, and opportunities for new international contacts and collaborations.Travel to international meetings is difficult for junior scientists, particularly at the assistant professor level, because they lack sufficient funds for such travel. This award will make it possible for seven junior scientists to attend and present papers or posters. The selection of travel fund recipients will be based on a vita and an abstract of the proposed presentation from each applicant. Selection will be made by a committee consisting of Dr. Gust, Prof. Silvia Braslavsky, the Conference Organizer, and Dr. Heinz Roth of Rutgers University. Drs. Gust and Roth are the two U.S. members of the International Scientific Committee.